Project Tellus: Interactive Global Environmental Change Videos for Middle School Science

Project Tellus is developing six (6) multidisciplinary video modules on global environment change concerns and issues that are indigenous to the Gulf of Mexico. For this project, information is synthesized for module production from Sea Grant staff, classroom teachers, university scientists, state agency specialists and recent research results and findings on global change. The 6 modules are designed around general topics as follows: scientific process, climatic change, biodiversity, sea level rise, exotic species and water quality. Classroom teachers are extensively involved in the writing, development, and dissemination of the materials.